Small-depth Circuit Complexity

. Circuits are a fundamental model of computations. Communication complexity and polynomial approximation have yielded many advances in the last decade; yet many important theoretical and practical problems are unsolved. This investigates the relative power of threshold, mod, and binary gates as computational devices. This project provides support postdoctoral associates to work with the PI to address these problems. ***